Upgrade of Departmental Electron Paramagnetic Resonance Facility

*** 9709977 SAMULSKI This award from the Chemistry Research Instrumentation and Facilities Program (CRIF) and the Office of Multidisciplinary Activities (OMA) will help the Department of Chemistry at University of North Carolina at Chapel Hill acquire a single crystal x-ray diffractometer equipped with a CCD detector. The equipment will enhance research in a number of areas including the following: (1) structures of catalytic intermediates in olefin polymerization reactions, (2) control of stereochemistry in radical addition reactions, (3) structural studies of cluster chains and mixed-valance cluster complexes, (4) enantioselective reactions of coordinated ligands, (5) a fundamental study of the interrelationships between alpha, beta, and gamma polarizabilities in metal chromophores, and (6) structural studies of 13-15 (II-V) monomers, chains, cycles and clusters. The X-ray diffractometer is used to make accurate and precise measurements of the full three dimensional structure of a molecule. The information obtained gives the precise values of all the bond distances and bond angles of a given molecule and it gives accurate information about the spatial arrangement of the molecule relative to neighboring molecules. ***